NSF-CNPq Collaborative Research: Combining Cognitive & Utilitarian Coordination in a Layered Agent Architecture

This CNPq research project will enable a research group at the University of Massachusetts, Amherst to cooperate with a research group at the Artificial Intelligence Group at the University of Rio Grande do Sul in Brazil. Together they will create a two-level multi-agent framework. At the higher level, a subsystem that reasons about symbolic information will be developed. Its activities pertain to domain-specific coordination tasks. At the lower level, a subsystem will be developed that reasons about quantitative information. Its activities pertain to feasibility and implementation operations. The two layers comprise interdependent activities that operate asynchronously. The lower layer provides feedback to the upper layer; the upper layer responds to the feedback by altering its tasks or performance objectives where necessary. Such an architecture will make it easier for multi-agent systems to function in open environments, such as the Internet, where the goals to be achieved, the resources available and the other interacting agents are dynamically changing.